U.S.-Australia Cooperative Research: Reproduction in the Brown Tree Snake, Boiga Irregularis

This award supports visits over a three-year period by Dr. Robert T. Mason of Oregon State University to the University of Queens- land, Australia, to work with Dr. Joan Margaret Whittier on reproduction in the tropical colubrid brown tree snake, Boiga irregularis, which is native to Australia, New Guinea, and the Solomon Islands. During World War II, the snake was introduced onto Guam, where it clearly established itself as a serious threat to native fauna and to humans. This snake is responsible for the extinction of three species of native birds on Guam, and the serious declination in the populations of most, if not all, remaining small vertebrates on the island. B. irregularis is a prolific colonizer and it has now been found on several additional islands, including Hawaii. Little is known of the biology in general of these snakes. Of particular importance in terms of managing this emerging threat to Pacific island fauna is the investigation of the reproductive potential of female brown tree snakes in their natural range in Australia. Specifically, the investigators will (1) characterize histologically the cycle of egg and sperm production, and sperm storage; (2) determine by radioimmunoassay sex steroid hormone secretion in both sexes; and (3) investigate the chemical ecology of these animals by isolating and chemically characterizing potential sex attractant pheromones produced by females.